Mathematical Sciences: Applications of Twistor Theory to Integrable Systems

9404577 Sparling The research covers topics relating the geometry of the solution spaces of classes of partial differential equations and that of an associated complex manifold. Integral geometric techniques can be combined to study Radon-like transformations which may have potential applications to CATSCAN and magnetic resonance imaging. Problems relating to solitons and integrable systems will also be pursued. ***